Microstructure Formation in Directional Solidification

Microstructural features of metal and semiconductor alloys such as the cells and dendrites formed by directional solidification play important roles in setting the mechanical and electrical properties of the product materials. This project deals with combined theoretical and experimental effort aimed at quantifying the mechanisms for pattern formation in thin-film directional solidification, a simplified form of an important materials process. Theoretical analysis and detailed numerical calculations will be used to examine the transitions involved with wavelength selection in cellular growth. Theories based on the existence of a quintessential mechanism for wavelength selection caused by the singular effects of a small surface energy will be explored by asymptotic analysis and numerical calculation. The hypothesis that a collection of cells is continually undergoing chaotic dynamical changes will be explored by cellular dynamics calculations by a new numerical method for accurately simulating the interaction of large microstructural patterns. Experimental measurements of thin-film solidification for an organic alloy gathered by video imaging and digitally processed will give quantitative data on cellular shape and wavelength as a function of time. Direct comparison between these experiments and calculations for a quasi-three-dimensional model that accounts for non-idealities in the experiment will give a quantitative test of the theory.